Synoptic-Dynamic Climatology of East Coast Winter Storms and Their Impacts

This is a continuation project to reconstruct a high-resolution climatology of east coast winter storms (ECWSs) using a regional analysis dataset, thereby updating and refining the previously developed ECWS climatology.

Intellectual merit: The PIs will (1) identify potential ECWSs to objectively link to disturbances (vorticity maxima) in either the subtropical jet stream and/or a more poleward jet stream, and (2) identify the impacts (coastal flooding and heavy snowfall) associated with each ECWS.

Completion of this work will offer new insights into dynamical linkages between ECWSs impacts and the origin and track of each ECWS.

Broader impacts: The research will increase our understanding of ECWSs, possibly leading to improved prediction of their impacts on society. It also provides learning experiences and training for a graduate student.